U.S.-Japan Cooperative Research: A Study of S=-2 Dibaryons and Hypernuclei

This award will support a two-year U.S.-Japan cooperative science project between Professor Peter Barnes, Physics Department, Carnegie Mellon University, and Professor Fujio Takeutchi, Department of Physics, University of Kyoto Sangyo, Kyoto, Japan. The U.S. group, which includes other investigators from Carnegie Mellon University and the University of New Mexico, will travel to Japan to develop and test equipment to be used in an experiment at Brookhaven National Laboratory (BNL). The experiment (E836) has been approved by Brookhaven authorities to operate at the AGS accelerator. The experiment is a follow-on of one already performed to search for the bound state of six quarks, two of them strange quarks. The U.S. team will work on equipment performance tests at the National Laboratory of High Energy Physics (KEK), where beam time at the synchrotron is available, and will compare and check data analysis performed independently by the U.S. and Japanese groups. It is also planned to develop detectors at KEK for an experiment related to the search for double strange hypernuclei that should exist if the H particle does not exist. The Japanese group, which includes investigators from Kyoto University and the Kyoto University of Education, will travel to Brookhaven to take part in the experiment. They will install their equipment at the AGS/BNL and take data. A goal of this project is to develop and maintain a cohesive effort and to develop future avenues of collaboration between U.S. and Japanese physicists.